Acquisition of Electron Backscatter Diffraction (EBSD) detector and sample preparation equipment

1028823
Mookerjee

This grant supports acquisition of an Electron Backscatter Diffraction (EBSD) detector that would be mated to an extant scanning electron microscope in the Keck Microanalysis Laboratory at Sonoma State University (SSU). EBSD allows for rapid quantitative determination of crystallographic preferred orientation in deformed rocks to support structural investigations of crustal deformation processes. The PIs research on crustal deformation associated with transpression will immediately benefit from EBSD. The EBSD will support undergraduate student and faculty research at SSU, promote collaborations with regional scientists in the Cal State University system and promote partnerships with local aerospace businesses with interests in alloy microstructural characterization.

***